U.S.-New Zealand: Distribution and Protein-binding of Acridine Compounds

This award will support collaborative research between Dr. Eain Cornford of the University of California at Los Angeles and Dr. James W. Paxton of the University of Aukland. This research is to investigate protein mediated transport systems capable of crossing the blood-brain barrier. Recent evidence shows protein binding in itself does not allow penetration of pharamacological substances into the brain. This project tests the hypothesis that there may be specific protein transport systems for certain substances successful for brain penetration, for one because of their smaller molecular size. The project represents excellent collation between the New Zealand group and its interest in anti-brain tumor agents and the Cornford work on blood brain barrier physiology and the manipulation of the barrier to achieve penetration of pharamacological substances into the brain. This is important fundamental work on the physiology of the blood brain barrier, as well as having potential for major advances in clinical medicine.